Mathematical Sciences: Topology of Locally Symmetric Spaces and Their Compactifications

McConnell has developed a new way to study Riemannian locally symmetric spaces and their compactifications, a class of spaces with many important examples occurring in quite different areas of mathematics, and consequently intensively studied by a host of strong mathematicians both here and abroad. McConnell's method lends itself to machine computation, and some of his effort will accordingly be computational.